Developing a Facility for Enhancing the Use of Accelerators Advanced Nuclear Techniques in the Undergraduate Physics

This project provides the opportunity for up to 20 groups of undergraduate students a year to visit the University of North Texas Accelerator Laboratory to perform nuclear physics experiments. These groups would come primarily from colleges and universities within a day's drive from the laboratory. A 2.7 MeV Van de Graaf accelerator is being upgraded with a scattering chamber reserved for student use. In addition, the accompanying faculty will have experience and contacts that can strengthen nuclear physics programs at the home institutions. Results and the description of experiments will be published in the appropriate places.